Acquisition of a Dual Non-Collinear Optical Parametric Amplifier (NOPA) System for Ultrafast Electron Transfer Studies

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Rutgers University in Newark will acquire a dual non-collinear optical parametric amplifier (NOPA) system for ultrafast electron transfer studies. This equipment will enhance research in the following areas: a) ultrafast long-distance electron injection in dye-sensitized solar cells; b) conformationally gated electron transfer in bio-mimetic peptide systems; c) ultrafast fragmentation reactions of carbenes; and d) photoinduced electron transfer in host-guest assemblies and at interfaces.

This instrumentation will be shared by faculty at the Newark and New Brunswick campuses of Rutgers University. Several of the projects have direct implications for the design of new hybrid solar energy conversion materials.